Set Theory

Omega-logic is the natural logic given by forcing:
a sentence is Omega-valid if it holds in all rank
initial segments of all forcing extensions of V. If
there exists a proper class of Woodin cardinals then
whether or not a given sentence is Omega-valid is itself
generically invariant. There is a natural candidate
of the notion of proof for Omega-logic and the Omega-Conjecture
is simply the conjecture that if there is a proper class
of Woodin cardinals then for any sentence, the sentence
is Omega-provable if and only if it is Omega-valid.
The significance of the Omega-Conjecture is
that if it is true then one has a complete analysis of
what can be achieved by forcing and moreover the set
of Omega-valid sentences is definable in third order
number theory. This places a limit on the possibilities
for generic absoluteness.

The Omega-Conjecture is also generically invariant and
so it is unlikely to be independent is the same fashion
that CH is. Therefore any refutation of the Omega-Conjecture
must come from large cardinal axioms. The Omega-Conjecture
holds in the current generation of inner models (extender models).
The focus of the proposal is to investigate the possibility
that some large cardinal hypothesis refutes the
Omega-Conjecture by examining extender models for
large cardinals beyond superstrong.
These extender models differ from the current family
in that long extenders are allowed on the sequence.
Preliminary results have established several key points.
First, for the standard generalization of extender models
to the case of long extenders, comparison fails as soon as
one reaches sequences of extenders for which the moving
spaces problem arises (this problem was first identified by Steel).
Nevertheless there is family of extender models
which effectively exhaust all known large cardinal axioms and for these
extender sequences the moving spaces problem does not arise
(the sequences are suitably short). If comparison
can be established for these models then Omega-Conjecture
holds in these inner models. As a corollary one would obtain
that no known large cardinal hypothesis can refute
the Omega-Conjecture. Finally if a suitable iteration
hypothesis holds in these inner models then assuming
appropriate large cardinals in V (extendible cardinals)
the Omega-Conjecture must hold in V. Finally if, as one
might naturally expect, there are definable versions of these extender
models then there are a number of truly profound corollaries.
These include the following: if there is an extendible cardinal
then HOD correctly computes the successor for a proper class
of singular cardinals.

Cantor's Continuum Hypothesis is arguably the most famous
unsolvable problem in Mathematics, it was the first problem
on Hilbert's list of 23 problems from 1900. The Continuum Hypothesis
simply asserts that any infinite collection of real numbers
is either equinumerous with the integers or equinumerous
with the collection of all real numbers.

Around 40 years ago this problem was shown to be formally
unsolvable from the axioms of Set Theory. This seminal work
of Cohen introduced a new technique to Set Theory, the
method of forcing. However the fact that the Continuum Hypothesis
is formally unsolvable does not necessarily imply that
it cannot be solved. Indeed the experience in Set Theory
over the last 40 years has demonstrated that some questions
which are formally unsolvable can be answered. But the
precise methodology used in these cases cannot work
for the problem of the Continuum Hypothesis.

The Omega-Conjecture (proposed around 10 years ago) arises
naturally from an abstract analysis of the method of forcing
but in the context of so called large cardinal axioms. If
the Omega-Conjecture is true then there is an argument, or at
least strong evidence, that the Continuum Hypothesis is false.
But independent of this, whether or not the Omega-Conjecture
is true has profound consequences for the foundations of Set Theory.

Cohen's method of forcing cannot be used to establish that
the Omega-Conjecture is unsolvable so it is reasonable to
expect that whether or not the Omega-Conjecture is true
can be resolved. Any refutation of the Omega-Conjecture
must come from large cardinal axioms. This research project
concerns trying to prove the Omega-Conjecture by a detailed
analysis of the hierarchy of large cardinal axioms. Preliminary
results have been obtained which offer strong evidence for
plausibility of this approach.